SGER: A Two-Phase Fluid Model of Prokaryotic Collective Swimming

ABSTRACT
Proposal Number: CTS-0623870
Principal Investigator: Wolgemuth, Charles W.
Affiliation: University of Connecticut Health Center
Proposal Title: SGER: A two-phase fluid model of prokaryotic collective swimming

This proposal suggests the development of a two-phase fluid model to describe the
pseudo-turbulent behavior that arises in dense colonies of swimming bacteria. When large populations of bacteria collectively swim, many interesting fluid flows can be generated and these counter-flows produce feedback on the swimming behavior of the bacteria. Therefore,
studying the coupling between collective swimming of bacteria and the associated hydrodynamics will lead to a more complete understanding of colony development in
large populations of swimming micro-organisms, such as can arise during biofilm formation.
Recent experiments on dense populations of swimming Bacillus subtilis have revealed a volume fraction-dependent transition from random swimming to transient jet and vortex patterns in the bacteria/fluid mixture. This proposal will develop a model that treats the
swimming bacteria as one phase of a multi-phase fluid and the surrounding water as a
second-phase.

Intellectual merit: Even modest progress will greatly increase our understanding of
the multiphase fluid dynamics that arises in bacterial populations, which will have
consequences for other important areas of bacterial behavior such as biofilm formation.
In addition, this project may provide new insights for nano- and micron-scale mixing,
which could be applicable for chemical reactor applications. The project is intrinsically
inter-disciplinary, drawing on ideas from fluid mechanics, applied mathematics, soft
condensed matter physics, and biology.

Broader impact: The results will be broadly disseminated at interdisciplinary
conferences and in interdisciplinary journals. In addition, the PI will teach methods and
results from this project in an interdisciplinary upper level undergraduate/graduate class
that he has developed entitled. An Introduction to Biophysics, which is cross-listed
between biomedical engineering, physics, mathematics, and molecular and cellular
biology. This course is taught between the Health Center campus and the main campus
of the University of Connecticut.